Topics in Arithmetic Geometry and K-theory

This proposal concerns questions in higher dimensional Arakelov theory and
algebraic K-theory. The PI intends to extend results of previous work with
Soule on motivic weight complexes of algebraic varities to the arithmetic case.
In collaboration with J. Hu, he intends to use the deformation to the normal
cone techniquess for Arakelov theory (developed by J. Hu in his thesis) to the
case of stacks. He also intends to study questions in arithmetic geometry
related to the Mordell conjecture using methods from differential algebra and
Arakelov theory.

This proposal deals with arithmetic geometry and algebraic K-theory.
Arithmetic geometry is the study of the properties of equations with
coefficients that are whole numbers, and using methods both from number
theory (the study of properties of whole numbers) and algebraic geometry, which
studies geometric figures that can be defined by the simplest of equations,
namely polynomials. Algebraic K-theory studies properties of linear equations
using methods from geometry. The questions and phenomena which arise from
combining number theory and geometry serve as driving forces in much of
contemporary mathematics research. Moreover, arithemetic geometry has
contributed to many applications including cryptography and theoretical
computer science.